Wireless Field Tests

9527664 Hughes This project will systematically field test the technical characteristics of a selected variety of wireless devices and digital radio nets which can be integrated into types of telecommunications networks, including the Internet, which serve the broadest purposes of public education and research by linking computers, sensing devices, control systems, servers, LANS and WANS operated by individuals, classrooms, schools and colleges for research, learning and teaching, connectivity, collaboration, and conferencing. In textual, sound and image modes of communications.